Nonlinear Multidimensional Systems of Hyperbolic Partial Differential Equations

The proposed research will focus on
models involving multidimensional systems
of nonlinear partial differential equations,
arising in elastodynamics, incompressible
fluid flow, and electromagnetics.
The emphasis of this work will be on existence and long time
behavior of solutions using analytical methods which
exploit the fundamental structure of the models, based on the null condition.
In the area of nonlinear elastodynamics, the
connection between the structure of the strain-energy
relations and global well-posedness for the
initial value problem will be studied.
The research aims at a better understanding of
the relationship between
compressible and incompressible materials,
the formation of shock waves, and the behavior
of elastic bodies in astrophysical applications.
The recent methods developed for elastodynamics
will be applied to the Born-Infeld system from nonlinear
electromagnetics and recently revived in string theory.
The confinement of vortical motion in planar incompressible ideal fluids
will be studied.

According to the classical principle of determinism, the
the evolutionary laws of a physical system together with an initial
configuration should determine the state of the system at all future times.
Mathematically speaking, the the laws of physics are encoded in
a system of partial differential equations solutions of which
should exist and depend uniquely and continuously on the initial
configuration. Creating the mathematical framework for a given
system and verifying its well-posedness (in the sense above)
is thus a problem of fundamental importance.
Much of the research in this proposal is devoted to such
basic questions for models describing the dynamics of elastic
materials. Material properties are expressed
through the specification of the relation between strain and energy,
using phenomenological arguments. However, phenomenology
alone does not fully characterize the structure of the model.
The desire to describe dynamics for all future times
leads to the imposition of further structural assumptions
which are deeply connected with the mathematical analysis of
the problem. In this sense, mathematical analysis offers
important guidance in the selection of the model.
With a mathematically tractable theory in hand,
it is possible to consider qualitative questions, such as how
the behavior of the system varies under changes in
material properties. In particular, the stability
of the system as the material becomes incompressible
will be studied. This includes rubber-like materials,
for example. The techniques will also be adapted to
allow for the inclusion of relativistic effects,
necessary for astrophysical applications.
The Born-Infeld model from nonlinear electrodynamics
(and recently revived in the theory of strings) will
also be investigated, since it shares similar structural
properties.